CMG: Summer School on Mathematical Seismology and Uncertainty in Earth Models

This proposal is to establish a summer school aimed at quantifying
uncertainty in earth modes obtained from seismic imaging. The
resolution in imaging techniques in global seismology has increased
dramatically in recent years due to the explosive growth in the
amount of digital data and computational facilities. However, the
accuracy of the spectacular images of 3D Earth structure that are
being produced is usually poorly known. The deployment of the
USArray component of Earthscope will dramatically increase the
coverage of the continental US with digital seismic stations,
resulting in unprecedented quantities of data. The full potential of
this data set can only be realized when the uncertainty in the
constructed earth models can be quantified adequately.

This school focuses on the quantification of uncertainty in seismic
imaging in the geosciences. Since this problem requires the input from
seismologists and mathematicians, the school is aimed at equal
participation from both groups. The material that will be covered
includes tutorial material as well as recent research. The presented
material will be presented in the form tutorial lectures, lectures on
recent research, computer exercises and problem sets, group meetings
with a a mentor, poster presentations, and field trips. The school
will be held at the campus of the Colorado School of Mines in the
summer of 2004. The duration of the school is two weeks.

Intellectual merit: The topic of the school addresses an issue
that is of paramount importance in the geosciences. The connection
between the constructed 3D Earth models and decision making can be
called poorly-developed at best. Addressing these questions requires a
joint effort of mathematicians and geoscientists.

Broader impact: The quantification of uncertainty in 3D models in the
earth sciences is of relevance for the exploration and production of
hydrocarbons, a better understanding of geo-dynamics with implication
for natural hazards, as well as to non-seismological aspects of the
geosciences that include ground water management, the detection and
spreading of pollutants, the detection of un-exploded ordnance, and
monitoring nuclear treaties. The quantification of uncertainty in
seismology is essential for the analysis and interpretation of the
US-Array data that will be collected as part of Earthscope.